Constitutive Functions for Active Complaint Materials

9909214
There is a tremendous growth in technologies associated with microdevices using
active polymers for microfluidics and microrobotics applications. This SGER
project uses a coupled experimental and analytical approach to provide the
constitutive descriptions necessary for systematic design using compliant active
materials. A novel Biaxial System for Active Materials (BSAM) is being developed
to measure the finite deformations of thin films of such materials, including
hyperelastic and viscoelastic behavior and active response under mechanical
load, by measuring local deformation and applied force histories while
controlling the trajectory in stretch space. Criscione invariants will be used
to characterize the hyperelastic potentials.